Conference: Philadelphia Harmonic Analysis and Differential Equations 2026 (PHADE 2026) - ICM Satellite Conference

The Philadelphia Harmonic Analysis and Differential Equations (PHADE 2026) conference will be held from July 18th to July 22nd, 2026 at the University of Pennsylvania in Philadelphia. The conference is an officially-designated satellite conference of the 2026 International Congress of Mathematicians, held at the Philadelphia Convention Center beginning on July 23rd. The PHADE 2026 program includes 50-minute talks by 38 international leaders in the field of harmonic analysis and partial differential equations, with particular emphasis on highlighting a number of groundbreaking and transformative advances which have occurred in the field within the past three to five years. The conference will also provide all participants with the opportunity to present their research through poster sessions running throughout the week. A substantial focus on the professional development of students and early career mathematicians gives this event the potential to have long-lasting and far-reaching impacts on the development of the United States mathematical research workforce. Students and other early-career researchers will be given opportunities to disseminate their work through poster sessions and a conference webpage for the distribution of mini-posters. All early career participants will have the opportunity to network and learn from peers and senior leaders during the conference. NSF funding provides valuable participant support.

The invited talks will highlight advances in five key areas: subelliptic PDE and generalized pseudodifferential operators, decoupling theory, oscillatory integrals, Geometric Measure Theory (GMT) and related elliptic PDE theory, and Fourier restriction, Kakeya, and Furstenburg problems. Leaders in these areas will be present to share their work with the harmonic analysis community, and by bringing these areas together at the same time, the conference will foster opportunities for making crucial connections. When viewed in its proximity to the ICM, a conference of this scale and significance has not occurred within the US harmonic analysis community in many decades. The broad participation of early-career researchers was a key factor in assembling the tentative schedule of invited talks, roughly half of which will feature talks by mathematicians less than ten years out of the Ph.D. Beyond these invited speakers, holding the event in close proximity to the ICM itself substantially multiplies these opportunities.

More information may be found at the conference webpage, <https://sites.google.com/sas.upenn.edu/phade-2026/home>.